Using Computers in Teaching Calculus and Differential Equations

A computer classroom/laboratory is being used to allow students to examine topics from a geometric point of view whenever possible. Students are using the computer and their intuition to develop an understanding of concepts and to discover theorems. When analytic methods fail to yield a closed form solution, numerical methods are used to obtain an approximate solution. Students are shown, in small doses, how to use the True Basic programming language and are required to write programs to accomplish a wide range of meaningful tasks. Unisys Personal Workstations running True Basic and Derive are the principal tools in the laboratory.